Nuclear Magnetic Resonance Spectrometer for Undergraduate Chemistry Instruction

This project will incorporate a 60-MHz nuclear magnetic resonance spectrometer into upgraded undergraduate chemistry instruction at the College of the Virgin Islands. No other NMR is available in the region, and geographic isolation precludes instrument-sharing with universities or research centers on the mainland. Availability of the NMR will enhance the educational experience of students in organic, analytical, inorganic, and physical chemistry laboratory courses. In addition, the instrument will be used by undergraduate students for research projects. NMR spectrometry experiments to be integrated into the chemistry curriculum are based on experiments published recently in the chemical literature. Providing hands-on experience with NMR spectrometry will make a significant contribution to the chemistry education of undergraduate students at this historically Black college.